Undercool-Rapid Quench Processing of Titanium Rare-Earth Alloys

A new materials processing system is used to rapidly solidify liquid metal from an undercooled state. This facility incorporates electromagnetic levitation and free fall in a drop tube with rapid solidification by melt spinning in an ultrahigh vacuum environment. A set of titanium/rare-earth alloys has been selected for study because previous research has demonstrated significant microstructural improvement after rapid solidification from a deep undercooled condition. The experimental method consists of three phases: (1) materials evaluation; (2) undercooling and recalescence modeling; and (3) ultra-rapid quench processing with consolidation into bulk samples. Scanning and transmission electron microscopy are used to characterize the samples. %%% This undercool-rapid quench processing system could be scaled up for commercialization. This research should permit the evaluation of the benefits of the process for a series of titanium alloys, as well as supplying scientific information on the process.